Travel Support for Workshop: Reaching Exascale in this Decade to be Co-Located with International Conference on High-Performance Computing (HiPC 2010)

This proposal requests travel support for organizing a workshop on Exascale Computing co-located with the International Conference on High-Performance Computing, Dec. 18-22 in Goa India. The workshop will involve presentations on the challenges of Exascale computing as well as on the results from previous workshops to be disseminated to wider audience and international community. The presentations will be given by leaders in the field of high-performance computing as well as leaders and participants from the working groups developing the Exascale agenda. In addition, a panel consisting of leaders from government funding agencies including those from US, India, Europe and Asia will discuss future directions and opportunities for funding and collaboration in the Exascale computing arena.